RUI: Noncommutative Geometry: Curvature and Rigidity of Noncompact Manifolds

Abstract

Award: DMS-0405867
Principal Investigator: Stanley S. Chang

The main projects funded by this award explore the existence
problem for Riemannian metrics of positive scalar curvature on
noncompact manifolds. The work of Gromov and Lawson on the
compact case of this problem has stimulated important parts of
the development of noncommutative geometry and controlled
topology and these projects are formulated within the context of
the stable Gromov-Lawson-Rosenberg conjecture. The principal
investigator and collaborators aim to construct an appropriate
assembly map in the noncompact case, to test that theory in
natural examples, and to study with the generalized Roe algebra
the coarse quasi-isometry type of manifolds that do admit
complete metrics of positive scalar curvature. Noncompact
manifolds obtained by deleting submanifolds from larger compact
manifolds and non-Galois or irregular covering spaces of compact
manifolds are promising sources of examples for study, and
noncompact manifolds of finite asymptotic dimension will receive
particular attention. Other directions of investigation include
the zero-in-the-spectrum conjecture and expander graphs.

Noncommutative geometry is an approach to the study of geometric
objects through algebras of natural functions and operators. For
example, much of the geometry of a sphere is captured in
solutions to equations that model vibration, and by the
differential operators that appear in those equations. Round
spheres are examples of manifolds of positive curvature, the flat
plane has curvature zero, and the saddle point in a mountain pass
is a model for space of negative curvature. Mathematicians have
found a number of tests that must be passed by any space that
would be a candidate to carry a geometry of positive curvature,
and these projects will advance that effort. Another line of
work described in the proposal concerns expander graphs, which
were originally introduced in computer science as models of large
networks with good communication properties but have also turned
out to be a source of potential counterexamples for geometric
questions. These will be the subject of seminars involving
students and faculty from Wellesley College and nearby
institutions.